Symposium: Endocrinology of Arctic Birds and Mammals, to be Held in Los Angeles, CA, December 27-30, 1993

9312641 Deviche A symposium has been organized by Dr. Deviche as part of the annual meeting of the American Society of Zoologists. This conference will focus on the endocrine mechanisms involved in the physiological functions of artic birds and mammals. The physiological functions include endocrine control of pre- migratory fattening, hibernation and reproductive endocrinology. The topic, "Endocrinology of Artic Birds and Mammals", is timely and the speakers are considered experts in their respective fields. It is anticipated that the symposium will be of interest to comparative endocrinologists and physiologists as well as behavioral ecologists. ***